Reasoning Tools for Understanding Water Systems

This exploratory project, led by faculty at the University of Montana, Michigan State University, and the University of Arizona, collaborating with teachers from the Missoula, MT schools, builds on current learning progression research to study the effects of teaching Tools for Reasoning on development of middle school students' capacities to understand the Earth's hydrologic systems. The project applies a design-based research approach using iterative cycles of Tool design/revision, teacher workshops, and small-scale pilot tests of Tools through classroom experiments with teachers and students in Montana and Arizona.

The central research question being addressed is: How can learning progression-based Reasoning Tools support students in using models and representations to engage in principled reasoning about hydrologic systems? This question will be answered by analysis of data from assessments of student learning, student clinical interviews, teacher assessments, classroom observations, and teacher focus groups.

The Reasoning Tools project will contribute insight into the challenge of developing students' environmental science literacy and the reasoning skills needed to make informed citizenship decisions about 21st century water issues. Project outcomes will include materials for teaching middle school students to reason about hydrologic systems, theoretical and practical insights into the effects of teaching Tools for Reasoning, strategies for supporting students and teachers in use of the Tools, and refinements of a water systems learning progression framework.